Species Relationships and Speciation in Parasitic Finches

Dr. Payne's research will test the evolutionary implications of the biological species concept. This the idea that individuals with a common set of behaviors for breeding form a single class, and individuals in it are genetically more similar to each other than to others because they have a common ancestor. The idea implies that a species has evolved only once. In a parasite animal species, a host may be colonized more than once. The colonizers may come from a single other species or from different parasite species. If parasite species have adapted more than once to a host, then a biological species with lookalike behaviors may consist of individuals that genealogically are more closely related to other populations than to each other. The aim is to compare biological and historical species concepts, and to test whether a biological species has evolved more than once or has a unique history. The parasitic finches are a unique group of birds. They may reveal a difference between a biological species and an evolutionary species viewed as a unique historical lineage. The birds learn the songs of their host species, and use these songs in choosing mates. Their song changes every year in a continuous process of cultural evolution. Geographic variation in their appearance and behavior suggests a multiple colonization of the host species. The work will use behavioral and biochemical genetics methods to test whether the parasites have split along the same evolutionary pathways as the host species, or whether parasite populations of the same biological species have multiple origins due to independent colonization events.